Travel Support for Fourth DELOS Workshop on Evaluation of Digital Libraries

The proposal requests travel expenses for US researchers to participate in a DELOS workshop on methods and metrics for evaluating digital libraries from a number of perspectives. The workshop will be held at MTA SZTAKI in Budapest, Hungary in June 2002. The workshop is co-organized by US and EC funded researchers. The workshop is part of a larger, coordinated planning and research activity being carried out by NSF-EU working groups. The findings of the working groups is expected to inform funding programs in the US, EU and other nations.

DELOS is a major forum for and organizer of digital libraries research and planning activities in Europe. It is funded by Information Societies Technologies (IST) 5th Framework Programme of the European Commission. This proposal seeks travel support for six participants from the American research community.